WOCE Hydrographic Program Sections Along 88 Degrees West and150 Degrees West

This proposal is to make helium masurements on the World Ocean Circulation Experiment (WOCE) cruises in the southeastern Pacific on longitudes 88 and 150 west. The helium data are useful as tracers of the deep ocean circulation, particularly in regions near the east Pacific rise from which elemental helium is known to emanate. These measurements, along with hydrographic and other tracer measurements will form the basis for ocean circulation descriptions which are the principal objectives of WOCE.